Theory and Application of Buffer-Focusing Chromatography for Process-Scale Protein Purification

CTS-9414714 D. Frey University of Maryland Baltimore County The purification of proteins using the analytical scale technique of chromaofocusing and its process scale analog of "buffer focusing" will be studied. These techniques employ internally produced pH and ionic strength gradients to simultaneously concentrate and purify proteins without denaturation or precipitation. The behavior of retained pH gradients obtained using multivalent buffering ions and the effect of the change in protein charge due to adsorption will be investigated. Previous local equilibrium theories will be modified to include several buffering species will be used with strong and weak base ion-exchange adsorbents to generate retained and gradual pH gradients, respectively. An improved understanding of buffer focusing as a novel method for bioseparations will be achieved. It may lead to a less expensive and more efficient process for protein separations on a large scale.